Ultracold Collision Dynamics in Traps and Beams

9313860 Weiner The research supported here involves the dynamics of an ultra-cold ensemble of colliding atoms. At low enough temperatures (or relative kinetic energies), many new effects become dominant. The quantum mechanical wavelength becomes greater than the range of the chemical forces, and spontaneous emission lifetimes become short compared to collision times. A theoretical and experimental program will be continued to study the behavior of inelastic and bond-forming collision processes in magneto-optical traps and in atomic beams. *** u wq= u w , u , u v v v v v v v F V F = u : v - ! ! F - - 3 Times New Roman Symbol & Arial 1 Courier + + + " h {3 e{3 e M ' C R:\WW20USER\ABSTRACT.DOT Denise Henry Denise Henry